Greater Philadelphia Region LSAMP Bridge to the Doctorate (Cohort XI) Program

Drexel University, as a representative of the Greater Philadelphia Region Louis Stokes Alliance for
Minority Participation (Philadelphia AMP), requests Bridge to the Doctorate funding for a two-year
period for a Cohort XI program, to expand and intensify the consortium's on-going efforts to substantially
increase the number of qualified African American, Hispanic and Native American (hereafter referred to
as "minority") students entering graduate study in science, technology, engineering and mathematics
(STEM), attaining doctoral degrees, and moving into the professoriate. The Philadelphia AMP represents
a diverse alliance of nine institutions consisting of public and private, 2- and 4-year research and nonresearch,
Historically Black Colleges and Universities (HBCUs) and majority institutions.

The goals of Philadelphia AMP's Bridge to the Doctorate (Cohort XI) project are to: (1) recruit twelve
students into Master's or Ph.D. degree programs at Drexel University; (2) retain these students through the
completion of the Master's or Ph.D. program, providing the Master’s students with full qualifications for
admission into a highly regarded Ph.D. program in their chosen STEM specialty with full financial
support; (3) enable the Master's student' admission and smooth transition into a Ph.D. program; and (4)
monitor all student progress through Ph.D. completion into the professoriate and beyond. We aim to have
100% of these students successfully complete their graduate study and enter a STEM career, with many
progressing into the professoriate at institutions of higher education.